U.S.-China Collaboration on the Interpretation of Fly's Eye Eas Results using the Chinese Emulsion Data

This award provides supplemental funds to Physics grant 9100221 which provided support for construction of the high resolution eye detector, a set of instrumentation which allows scientists to study the nature and origin of the highest energy cosmic rays. The additional funding provided in this award will allow the US scientists to work with Chinese scientists who are conducting another experiment, in China, which exposes photographic emulsion to cosmic rays. Data produced by the Chinese experiment is complementary to the data from the US experiment, and through this collaboration, both groups will have ready access to each body of data for comparison. The Chinese facility is located in Tibet, and without cooperation of this kind, it would be unlikely that US scientists would have access to the data obtained there. Chinese scientists will also visit the US to work directly with the team of scientists at the US facility in Utah.